esearch Initiation Award: Geomechanical Investigation of ime Dependence of In-Situ Stresses in Soils

The time dependence of stresses in soils will be investigated. Complex laboratory triaxial tests will be utilized.